Experimental and Theoretical Studies of Charge-Charge Interactions in Proteins

Understanding the mechanisms of stabilization of protein structure represents one of the major
aspects of the protein folding problem. The contributions of various short-range interactions,
such as hydrogen bonding, the hydrophobic effect, and configurational entropy, to protein
stability have been well documented. However, it is becoming more and more evident that the
long-range electrostatic interactions between charged protein groups are also important
contributors to protein structure and stability. The proposed work has an overall goal to explore
the relation between the charge-charge interactions on the protein surface and the protein
stability by engineering a thermostable protein by redesigning the charge-charge interactions on the
protein surface, and analyzing the optimized charge-charge interactions.

The theoretical part of the work is based on the calculation of the charge-charge
interactions in proteins using Tanford-Kirkwood approach with Bashford-Karplus approximation
(TK-BK procedure). The experimental measurement of the stabilities of the protein variants
designed using TK-BK predictions will be done using differential scanning calorimetry, or using
chemical (urea) induced denaturation monitored by the changes in the circular dichroism or
fluorescence intensity properties. The fundamental importance of this research is that
using a combination of theoretical calculations and experimental measurements the relationship
between charge-charge interactions and the protein stability will be explored. From the practical
point this research will provide the foundation for the design of proteins stable at extreme
temperatures. This will benefit the industrial use of proteins where thermostability of enzymes is
in many cases the largest obstacle.